REG: Acquisition of Accessories for a High Temperature Mechanical Testing System

High temperature Vacuum/Inert Atmosphere furnace and Tensile gripping fixtures will be purchased and used to study mechanical behavior of advanced metallic, intermetallic, ceramic and composite materials up to 2000oC. The research encompasses fiber reinforced ceramic composites, damage processes in glass/ceramic matrix composites, and effect of microstructure and solutes on tensile and creep deformation of TiAl based alloys.